Meeting: Plant Physiology in the 'Omics Era' to be held May 23-25, 2012 in Columbia, Missouri

The field of plant physiology has made fundamental contributions to our understanding of plant biology, for instance, insights into the processes of carbon assimilation and partitioning, nitrogen use efficiency, improvements in yield, the hormonal control of plant growth and development, perception of red/far-red light by phytochromes, and plant responses to drought and mineral deficiencies. While many of these processes have been well studied at the whole-plant level for decades, in some cases, mechanistic insights have been difficult to achieve. With the advent of genomic technologies over the last 15-20 years, new opportunities have arisen to address unresolved, long-standing questions in plant biology. The 2012 Interdisciplinary Plant Group Symposium to be held May 23-25, 2012 at the University of Missouri-Columbia will bring together a diverse group of international scholars studying fundamental biological processes in plants from varying disciplinary angles. The symposium is designed in such a way as to enhance networking opportunities for graduate students and postdoctoral fellows and will create a venue to foster collaborative and interdisciplinary research projects for faculty and students. Funding provided by NSF will broaden participation by defraying the costs of participation of undergraduate students, particularly those from smaller and minority-serving institutions, as well as postdoctoral fellows, graduate and undergraduate students with specific emphasis on women and underrepresented groups.